Support for the Division of Environmental Biology (DEB) Ecological Studies Cluster

; R o o t E n t r y F Jw s= C o m p O b j b W o r d D o c u m e n t j O b j e c t P o o l F s= F s= " ! # $ % & ' ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e j j j j j j j j 1 O Q Q Q o T 2 8 j j j j j O ~ j j j j O Linsky This award will underwrite the provision of essential technical and administrative support services for the Ecological Studies Cluster (Ecology and Ecosystem Studies programs). the current effort will provide those services pertinent to competitive research proposals received in response to the cluster s June 15, 1995, target date for proposals. the effort will continue with that grouping of proposals through their final disposition following the October 1995 panel meeting for the programs. Oh +' 0 $ H l S u m m a r y I n f o r m a t i o n ( D h R:\WWUSER\TEMPLATE\NORMAL.DOT Linsky deborah johnson deborah johnson @ p= @ K p= @ s= @ v A Microsoft Word 6.0 3 ; c ! ! K @ Normal a " A@ " D efault Paragraph Font deborah johnson(\\CLM2\DEBECO\ECOLOGY\CLUSTER\LINSKY.DOC deborah johnson%\\CLM2\DEBECO\ECOLOGY\CLUSTER\LIN.ABS deborah johnson%\\CLM2\DEBECO\ECOLOGY\CLUSTER\LIN.ABS @HP DeskJet 500 LPT1: HPDSKJET HP DeskJet 500 D L f 1 , , ( 4p 7\ & d +NpR (s HP DeskJet 500 D L f 1 , , ( 4p 7\ & d +NpR (s 1 Times New Roman Symbol & Arial " h $ 8 Linsky deborah johnson deborah johnson ;